Topological Invariants of Singular Spaces

DMS-0305113
Marcus Banagl

The principal investigator proposes to further our understanding of
the topology of singular spaces. Numerous invariants relevant vis-a-vis
the classification theory of stratified spaces are associated to self-dual
complexes of sheaves, as such objects induce a generalized Poincare-duality
on the level of cohomology. On spaces with only even-codimensional strata,
orthogonal decompositions of self-dual sheaves have been obtained by
Beilinson-Bernstein-Deligne and Cappell-Shaneson. The investigator proposes
to pursue this question on spaces that include strata of odd codimension as
well. Initial evidence suggests that in many situations the odd-codimensional
strata do not contribute terms in the decomposition. This new phenomenon
leads to interesting consequences for associated characteristic classes and
for stratified maps. In earlier work, the investigator has constructed L-classes
of non-Witt spaces. He would like to explore the behavior and applications of
these classes. In collaboration with S. Cappell, the investigator has
obtained an Atiyah-type characteristic class formula for the twisted
L-class of a singular space, assuming a ``transversality'' condition on the
local system near the singularities. One is interested in extending the
results beyond this assumption. This problem is already interesting on
manifolds together with a codimension 2 submanifold and a local system
defined on the complement. Lastly, the proposer in conjunction with R. Kulkarni,
has constructed self-dual strongly perverse sheaves on the reductive
Borel-Serre compactification of Hilbert modular surfaces. These are
non-Witt spaces. The investigator would like to analyze the resulting invariants
(particularly with a view towards their number-theoretic content), as well
as generalize the results to higher dimensional modular varieties.

Topology is the study of geometrical objects focusing on the neighborhood
relations between points rather than on measurement of distances. In the
last century, considerable effort has been directed towards studying
"manifolds" -- spaces that locally look uniform, at each point and in
each direction. This effort has been immensely successful; a central
insight was that crucial information about a manifold is carried by one
number: its "signature," measuring intersections of geometric sub-objects
within the manifold. In the last two decades, topologists have studied
"singular" spaces with increasing interest, due to their numerous
occurrences and applications within pure mathematics (algebraic geometry,
number theory) and outside pure mathematics (mathematical physics). In
contrast to a manifold, a singular space may locally look different from
point to point. The proposed research tries to define, understand and
compute a signature and other characteristic numbers for singular spaces.